Experimental Fibrous Veins

9705701 Means Fibrous views and pressure shadows in rocks are essential tools for reconstructing kinematic histories in deformed rock bodies, yet the origin of these features is not well-understood. This casts uncertainty on their reliability and applicability. This project will conduct a series of laboratory studies to grow fibers under a variety of stress and strain rates using a rock-analog material. Preliminary work has demonstrated the feasibility and utility of this technique. Results are expected to shed light on the origin and growth of fibers and to test concepts that fibers record displacement histories, incremental strain and strain amounts. Successful results will widely apply to may tectonic studies using fibers as strain indicators.